Renewable Energy: Solar Fuels 2007 Gordon Research Conference

A new Gordon Research Conference, Renewable Energy: Solar Fuels, is partially supported by the Division of Chemistry. The inaugural conference will be held in Ventura, California, in January 2007. The meeting will bring together a diverse group of international experts in global climate control, biofuel production, catalysis, photovoltaics and surface chemistry.

The renewable energy challenge requires a partnership of knowledge among scientists spanning chemistry, materials science, physics and biology. The GRC will foster this critical partnership by collecting scientists to share their knowledge and thoughts on the science of renewable energy.